Secure Communications in Fading Cognitive Radio Networks with Finite-Alphabet Signaling

Objective:
The objective of this program is to establish transformative methodology and novel
algorithms for secure communications in spectrum sharing cognitive radio networks to
simultaneously maximize the secrecy throughput of secondary users under security
threats, ensure the quality of service for primary users, and keep information secret to
eavesdroppers.

Intellectual merit:
The intellectual merit is: 1) to propose a unified network model to describe the fading
cognitive radio network that has multiple primary users, secondary users and
eavesdroppers, all connected by wireless fading channels; 2) to formulate the secure
communication of secondary users into direct maximization of mutual information or
throughput with finite-alphabet (rather than Gaussian) signaling and channel statistics
constraints; 3) to present a novel approach to solving the neither concave nor convex
optimization problem.

Broader impacts:
The broader impacts include: 1) this project will bridge the gap between network
information theory and practical network implementation by employing finite-alphabet
signaling and channel statistics to optimize linear precoders which maximize the
practically achievable data rates or throughput; 2) it will establish a transformative
methodology that effectively tackles difficult non-concave, non-convex, and nondeterministic
polynomial-time (NP) hard optimization problems in cognitive radio
networks. This methodology can be well applicable to other wireless network settings
such as cooperative relay networks, cellular networks, and wireless sensor and mesh
networks; 3) The research will be timely integrated to collaborations with industrial
partners and education of undergraduate and graduate students, particularly, underrepresented
minority students, thus enhancing the impact to the society via technology innovation.